ROW: Viscous-Flow Animation for Unsteady Separation at HighReynolds Number

Under a Research Planning Grant, initial steps are to be taken for the development of a numerical code which would produce visual animation of computed unsteady separation of flow from solid surfaces. The formulation is one which couples the animation directly to the flow computation, to follow it as the computed flow evolves. The computation will be fully viscous, eventually three dimensional, and unsteady. Realistic dynamic representation of simulated flow separation phenomena will be of great utility in comparing simulated and experimental results and contribute to the ability to more reliably predict this complex flow phenomenon.